Soil-Bentonite Cutoff Walls: Trench Stresses and Adjacent Ground Settlement

9502448 Filz Even though soil-bentonite cutoff walls are widely used, the state of practice is that they are designed and built without a fundamental understanding of the mechanics of the interaction between the trench backfill and the adjacent ground. The consequences of this are that neither the hydraulic conductivity of the backfill nor the settlement of the adjacent ground can be accurately predicted. The principal objective of this research is to put design of these walls on a sound theoretical basis. The methods to be employed include laboratory testing, instrumentation of a full-scale cutoff wall, analytical work, and numerical analyses. Methods used for the educational component include: 1) a version of multimedia developed to improve classroom efficiency and to create time for students to exercise new knowledge as soon as they learn it and get immediate feedback on their performance, 2) and interdisciplinary educational program will be developed that will involve the environmental, hydrosystems, and geotechnical engineering groups, and 3) undergraduates will participate in the soil-bentonite cutoff wall research. ***